Amorphous Carbides and Borides

This proposal deals with the synthesis and characterization of glassy forms of titanium carbide and titanium diboride--compounds known for high hardness, low friction and chemical stability. It is suggested that these advantageous characteristics will be enhanced by eliminating grain boundaries and long-range order, i.e., by preparing the materials in an "amorphous" rather than crystalline state. Preliminary results show that such specimens can be prepared in the form of thin films by chemical vapor deposition using an organometallic carrier molecule and by thermal vaporization on a cooled substrate. Analysis by various spectroscopies indicate some interesting differences in the local electronic and atomic environment of Ti, C and B in the films compared with crystalline forms. A major investigative tool in this project is analysis of the extended fine structure above the characteristic x-ray edge, studied by EXAFS for Ti and by EXELFS for C and B. It is proposed to extend the preliminary study to complete the characterization of the local environment in the disordered films, test theoretical models proposed for glassy metals, determine crystallization temperatures, and compare corrosion rates and friction coefficients with crystalline forms of TiC and TiB2. The technological implications of this work including applications for cutting tools, bearings, and corrosion resistant surfaces, etc., will be addressed.